Princeton Earth Physics Project

PEPP proposes to install a simple seismograph in schools and colleges, to create a computer network to share data and information, and to form a network of supporting IRIS-members* to train and support science teachers. The main goals are: . To develop "hands on" seismological equipment for use at high schools and colleges, to increase the curiosity of students to explain nature, . To increase the understanding of physical concepts through connected lab experiments, while developing a sense of familiarity with the seismometer as an instrument based on these concepts, . To train teachers to do real "classroom science" with their students and provide scientific back-up for these activities, . To stimulate interaction between teachers in Earth sciences and physics with researchers in geophysics, . To give teachers organizational and intellectual support by providing materials, computer networking as well as research opportunities, . To disseminate PEPP nationally and build a unique seismological array that allows students and teachers to make real discoveries. Rather than stop at the classroom "demonstration" level, PEPP tries to extend all the way towards real science. This unique feature of PEPP will greatly contribute towards the enthusiasm of both students and teachers. It will take three years to develop the first PEPP modules with the necessary infrastructure and to show the feasibility in a pilot project before moving on to a final project at national scale.